Harmonic Analysis and Hyperbolic Partial Differential Equations

DMS-9970407
Abstract

The investigator is continuing his research into the behavior of
wave propagation in nonhomogeneous media with "rough" wave speeds.
The goal is to obtain estimates of Strichartz and nullform type
on solutions to variable coefficient wave equations under
minimal differentiability assumptions on the coefficients.
Under current NSF funding, the investigator has shown that
the Strichartz estimates hold if the curvature tensor of the wave
speed metric is bounded and measurable. The proposed research
includes extending these results to obtain estimates for bilinear
null-forms of solutions, as well as estimates for eigenfunctions
of the Laplacian on spaces with bounded curvature. The investigator
is also involved in joint work studying the Strichartz and bilinear
nullform estimates for waves which reflect from convex obstacles.
Previous joint research has obtained such estimates in bounded
regions of space-time. The proposed research involves combining these
local methods with known energy decay estimates to obtain such
estimates valid globally in space and time. These results are then
being applied to establish long time existence for certain nonlinear
wave equations on the region exterior to a convex obstacle.

The development of techniques to handle partial differential equations
with low regularity coefficients is of both theoretical and practical
interest. The theoretical interest comes from the study of
nonlinear equations in math and physics, such as Einstein's equations
for the gravitational field, or the equations of fluid dynamics.
A central question for such equations is the "long time" existence
of solutions; that is, showing that solutions do not blow up
at some future time. The main technique for doing this is to show
that one can control the size of the nonlinear part of the equation
in terms of quantities that are known to remain controlled, such
as the energy of the solution. For Einstein's equations, this
requires understanding the wave equation with rough wave speeds.
The practical importance of such studies is that a theoretical
understanding of the propagation of waves in rough media should
lead to more efficient algorithms for the numerical computation
of solutions. Our work involves splitting the solution into
elementary pieces, each of which behaves in a particularly simple
manner. This is analogous to the decomposition of functions into
wavelets, much of the modern theory of which was developed to
understood nonlinear equations of stable-state phenomena. Wavelets
have in turn led to simple and stable algorithms for solving such
equations, as well as to powerful algorithms in the fields of image
and signal processing.